Increasing the Impact of Advanced Technology on the Education Market.

9552952 Kozma The Center for Technology in Learning at SRI International and the Software Publishers Association represent the two constituencies targeted by these objectives. The intended approach of this project is to use the position of these two organizations to bring together members of the academic research and development community with members of the software publisher community to identify issues, discuss their resolution and develop collaborations that will bring NSF-funded ideas and projects to market and increase their impact on education. The vehicle for this meeting is the national meeting of the Software Publishers Association, scheduled for Boston, MA Sept 26-30, 1995. Typically, 1,500 people attend the east cost conference of SPA. We plan a series of activities during this conference that will address the objectives above. Some of these activities will be open to the general audience attending SPA. Other activities will be limited to an invited group of academics and publishers that will begin what is hoped will be an on-going dialog that contributes to the resolution of the identified issues. ***